Industry/University Cooperative Research Center for ChemicalProcess and Modeling and Control

This project involves the initiation and operation of an Industry/University Cooperative Research Center in Chemical Process Modeling and Control. The focus of the research program of the Center is bridging the gap between abstract, academic control theory and practical, engineering applications in industry. The Center addresses both a generic research program and an associated company-specific research option. This dual approach to a research program in an industry/university cooperative research center represents a unique experiment in university/industry interaction.